RUI: Kinetic Theory of Ion Traps

Prof. Larry Viehland of Chatham College is supported by the Theoretical and Computational Chemistry program via a RUI award to study the kinetic theory of ion traps. The research is developing a detailed kinetic theory of ion traps that will make explicit connection with molecular level events. The theory is based on the Boltzmann equation and takes into account gaseous mixtures, molecular gases and complex trapping fields and is being carried out in collaboration with an experimental group led by Dr. Douglas Goeringer of Oak Ridge National Laboratory. The work is having a broader impact through the expected applications to quantum computing, trace organic analysis and the design of ion traps as well as through the positive impact on female undergraduates who are participating in the research at Chatham, one of the few remaining women's colleges in the United States.